Modeling the Charge Transport of Nanowire-based Dye-Sensitized Solar Cells

1033736
Ziegler

Intellectual Merit

Efficiencies of traditional dye-sensitized solar cells (DSSCs) based on nanoparticle thin films are limited by the competition between electron injection and the loss mechanisms from interfacial charge recombination and back reactions. Without a localized field driving electrons to the current collector, interfacial electrons can recombine with the photoactive dye or back-react with the electrolyte. These undesirable losses limit the photoanode thickness and maximum conversion efficiency. Nanowire arrays are promising architectures that have improved electron transport and charge injection due to an electric field. However, DSSC devices based on nanowire-based photoanodes thus far have not been able to take full advantage of the benefits that nanowires offer to electron transport, short circuit current, and open circuit voltage.

The objective of this proposal is to develop a model that simulates the performance of nanowire-based DSSCs so that field-assisted charge transport effects within these devices can be understood and used more effectively. The proposed work will focus on combining a charge transport model which accounts for the interfacial electric field with experimental studies to validate the transport dynamics and conversion efficiencies calculated for nanowire-based DSSCs. The anodic-alumina-oxide templating approach used to fabricate the semiconductor oxide nanowires takes advantage of the great flexibility in preparing nanowires with different types of materials, aspect ratios, and spacing. This flexibility allows the systematic study of the effect of field-assisted electron transport on DSSC efficiency. The developed model can be used to determine the fabrication parameters (i.e. nanowire diameter, shell thickness, length, and array density) required to maximize efficiency. These results may also provide new insight into the controlling key reactions or processes in charge transport for DSSCs.

Broader Impacts

Beyond photovoltaic applications, the development of nanowire arrays is important to electronic, optoelectronic, environmental, and biomedical applications. The proposed education and outreach activities leverage existing successful programs at the University of Florida (UF). An engineering course sequence in nanotechnology developed through previous a NSF CCLI (Course, Curriculum, and Laboratory Improvement) grant at UF will be enhanced to include solar photovoltaics. Opportunities for undergraduates to participate in the proposed research will be provided through the UF University Scholars Program. Students from under-represented groups will be mentored UF University Minority Mentoring Program through interactions with the PI in the context of the proposed research. Short courses for school teachers on renewable energy and nanomaterials will be offered through the UF Teachers as Scholars Program. High school students will be recruited for summer experiences through the UF Student Science Training Program.